RUI: Aquisition of a Scanning Densitometer/Gel Reader and Sequence Analysis Software

This is a proposal for modern nucleic acid sequence analysis instrumentation. Sequencing experiments to be pursued include: (1) sequencing of cloned mutant genes for the enzyme luciferase in order to better characterize the active site of the enzyme, (2) sequencing of the regulatory regions of the lux operons of Vibrio harveyi and Xenorhabdus luminescens, (3) sequencing of cloned fragments containing recombinational hot-spots to determine orientation, (4) sequencing of the products of confirmed in vitro recombination to characterize the recombinational event, (5) sequencing of other members of a new family of retroviral sequences found in as many as thirty copies per mouse genome, and (6) sequencing of portions of a novel transposon in Streptococcus suis which mediates its own transfer via conjugation.